1997 Aspen Winter Condensed Matter Physics Conference; January 12-18, 1997

9610097 Ramonde The 1997 Aspen Winter Conference will devote one week to condensed matter physics. The focus will be on mesoscopic physics, reduced dimensionality systems, and correlated electrons. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level knowledge and what remains to be learned in the future. NSF support will provide financial assistance to graduate students and young scientists. %%% The 1997 Aspen Winter Conference will devote one week to condensed matter physics. The focus will be on the mesoscopic physics, reduced dimensionality systems, and correlated electrons. The conference will be interdisciplinary, and will bring together leading scientists from academia and industry to critically assess the current level knowledge and what remains to be learned in the future. NSF support will provide financial assistance to graduate students and young scientists ***